SGER: Xen In The Hand (XenITH)

Mobile computing and wireless telephony are increasing converging, with many
handheld devices (e.g., PALM Treos and RIM Blackberries) able to assume roles as
either cellular telephones or as computers. A key research question that arises as a
consequence of this convergence is whether the strategies such as virtualization used for
isolation and resource sharing in larger cabled computers will be applicable to machines
that are limited by size, computational power and battery life. This question also has great
bearing on the extent to which NSF's proposed GENI initiative will impact the most
numerous network endpoints (there are more than 2 billion GSM mobile phones in use,
for example).

The project focuses on an experimental effort to anticipate this need and provide a definitive
answer to the question of resource division and isolation in handheld devices. Our
candidate devices are HP iPaq handhelds, although if time permits we will also
investigate a cellphone platform that uses a reduced version of the Linux operating
system. The experiment will be to demonstrate virtualization of a handheld node that
allows it to be used as a MANET (i.e., as a packet relay) concurrently with its use as a
VoIP edge device. The performance will be evaluated using the e-Model for voice
quality. Maintaining voice quality will demonstrate the effectiveness of the resource
management and isolation.